Amateur Astronomers as Informal Science Ambassadors -- A Planning Grant

The Astronomical Society of the Pacific, in collaboration with the Astronomical League and Sky and Telescope Magazine, will survey amateur astronomers to determine which informal audiences they serve and what types of support materials would encourage them to do more and better outreach, and to test a prototype set of outreach support materials. Amateur astronomers, estimated to number 300,000 to 500,000, represent a large and mostly untapped source of expertise and enthusiasm for conducting educational outreach activities in the community and in schools.